Cohomology and Representation Theory

Abstract for NSF proposal DMS-0400548 Nakano

The principal investigator will explore problems involving
the representation theory and cohomology of algebraic groups,
Lie algebras and finite groups. An important object of study
will be support varieties which provide a bridge linking
the representation theory, cohomology theory and the structure
theory (involving conjugacy classes) of Lie algebras.
Computations of such varieties will be considered as well
as generalizations of the theory to quantum groups and affine
Lie algebras. The investigator will also look at
computations of cohomology groups/rings of finite Chevalley groups
and Frobenius kernels especially for primes less than the Coxeter
number. It is anticipated that the use of extensive
computer calculations might be necessary for several of these
projects.

Algebraic structures such are groups, rings and Lie algebras
arise naturally, and the basic understanding of these objects have been
used in applications involving biology, physics and chemistry.
These algebraic objects have complicated internal symmetries.
Information about the representation and cohomology theories
allows one to organize and extract vital information that can
be used in these various applications. The principal investigator
has been actively promoting the working knowledge of these
methods. He is currently organizing several conferences in
representation/cohomology theory and is a co-organizer
of the VIGRE (Vertical Integration of Research and Education) Algebra
Group at the University of Georgia which promotes learning through
active faculty and student participation.